Mathematical Sciences: Differential Equations in Geometry

The principal investigator will continue his study of problems in complex differential geometry. In particular he will study the interplay between topology and the complex structures on a manifold. These problems will include a study of the vector bundles over a manifold. In addition, Professor Yau will study some problems in spectral geometry and numerical approaches to the geometry of the Laplace operator. This award will support research in the general area of differential geometry and global analysis. Differential geometry is the study of the relationship between the geometry of a space and analytic concepts defined on the space. Global analysis is the study of the overall geometric and topological properties of a space by piecing together local information. Applications of these areas of mathematics in other sciences include the structure of complicated molecules, liquid-gas boundaries, and the large scale structure of the universe.